Inheritance Theory and Knowledge Bases

Theories of defeasible reasoning previously developed and supported will be further investigated. Expansion will include networks with expressive enhancements such as: nets with limited cyclicity; Boolean combinations of nodes in nets; study of arguments which interfere with a given argument by disabling inferences leading to a particular conclusion; hydra inheritance; higher order links; semantic foundations for defeasible inheritance; and additional work on roles and relations. This is basic research on reasoning focusing on inheritance and having significance in non-monotonic methods.